The Mississippi Rural Poverty Project

Project Objectives: The primary objective of the project is to develop a competitive research proposal on "The Mississippi Rural Poverty Project." The project will seek to apply the Chicago Urban Poverty and Family Structure Project (UPFSP) to Mississippi. Broader Significance of the Project: Support of the project will assist a well trained black, sociologist to improve his research capability and to complete the planning and development of a regular MRI proposal. The planning activities, if successful, will significantly enhance the potential of the investigator to compete for MRI and other research support.